Condensed Matter Theory

This grant is in support of a graduate student to conduct research on the application of field theoretic techniques in the quantum Hall regime. Particular emphasis will be placed on understanding conductance fluctuations and nonlinear transport, as well as the application of scaling and universality concepts.